Mathematical Sciences: 1996-1997 Clifford Lectures; November, 1996; New Orleans, LA

9612114 Wang The Mathematics Department of Tulane University requests a partial support for the 1996-1997 Clifford Lectures, which will be held in November 1996. This will partially cover the expenses of speakers and participating students and faculty who do not have grants. The principal lecturer will be Professor Paul Fife of the University of Utah, who will speak on "Mathematical issues in the dynamics of phase transitions". The lectures, with their accompanying miniconference, will bring lively interactions among scientists in applied analysis, modeling and computation in material science and mathematical biology, statistical physics as well as geometry. The conference will bring mathematics of the highest quality to faculty and students from not only at Tulane but also from Louisiana universities. %%% This proposal calls for support to organize a week long conference, historically known as the Clifford Lecture series. The purpose of the lecture series is to bring together researchers from many different fields who have a common intersection on phase transition which is an active area in the theoretical material science, statistical physics as well as geometry. The topics to be covered represent some current technological issues in phase transition. The theme of the workshop includes a principal lecturer, followed by a mini conference. Student participation is a strong component of the lecture series. ***